Stereotaxic Injection of Antisense DNA: A Potentially Specific In Vivo Manipulation of Central Neurotransmitter Receptor Expression

Neurotransmitters are chemicals that convey information to nerve cells by binding to specific receptors on the cell membrane. Antisense DNA (asDNA), a small number of nucleotides complementary to the protein coding strand of DNA, may inhibit the in vivo production of neurotransmitter receptor subtypes that cannot otherwise be selectively manipulated. In contrast to the development of receptor specific drugs, the asDNAs can be logically designed and quickly synthesized. The aim of this project, under the direction of Dr. MacLennan, is to test whether asDNAs select for specific neurotransmitters in brain. A series of experiments, using central dopamine receptor systems, will be designed to determine if asDNA can manipulate neurotransmitter in vivo. By utilizing this technology, it may be possible to eliminate in selected areas of the brain, the effect of any given neurotransmitter. If effective, this tool will help determine the regulation and individual functions of receptor subtypes and other important neuronal proteins, greatly advancing the study of neurotransmitter receptors.